CRCD: An Open and Integrated Platform for Online Laboratory Experiment, Computer Simulation, and Course Instruction Using Internet

EIA-9980306
Wang, Fei-Yue
Bahill, A. Terry
Goldberg, Jeffrey B.
University of Arizona

CRCD: An Open and Integrated Platform for Online Laboratory Experiment, Computer Simulation and Course Instruction Using Internet

This CISE Combined Research-Curriculum Develop proposal requests funds to develop an open and integrated platform for online laboratory experimentation, computer simulation, and course instruction using the Internet for research and teaching in modeling, analysis, and control of dynamic systems. The open and integrated architecture will allow faculty and students around the nation to develop, implement and conduct their own lab and computer projects. The project will be a joint effort by the University of Arizona (UA), Arizona State University (ASU) and Northern Arizona University (NAU). The proposed platform will have a direct and significant impact on the teaching of approximately sixty existing courses at the three universities. Some of these courses do not currently have a lab component; others need to be updated and improved. The proposed platform will be integral to the creation of two new courses for advanced undergraduate and beginning graduate students: Mechatronics and Intelligent Control Systems.